Young Scholars Program at Wiley College

Wiley College seeks to provide a six week summer residential Young Scholars program in interdisciplinary science and mathematics for twenty students in the eleventh and twelfth grades. The participants residing within the East Texas region will be provided with a research experience and experiences in hands-on laboratory activities in chemistry, physics, mathematics and computer science.